Carbon-Isotopic Records of Quaternary CO2 Levels

Work just completed has shown that the isotopic fractionation accompanying photosynthetic fixation of carbon by marine algae can be related to the concentration of dissolved CO.2 in surface waters. Specifically, during the past 100 kyr, the carbon.isotopic difference between planktonic foraminiferal carbonate and C.37 diunsaturated ketones produced by coccolithophorid algae has varied in proportion to the partial pressure of CO.2 in the atmosphere. This phenomenon can be understood in terms of the molecular processes involved in carbon fixation, and it is the goal of this work to determine whether a consistent quantitative relationship between CO.2 levels (oceanic and atmospheric) and isotopic fractionation can be established. If so, it should be possible to define a "paleobarometer" for CO.2 and to examine the variation of levels of this important greenhouse gas over tens, if not hundreds, of millions of years of earth history.